Effects of Climate Change and Sea Level Rise on Trophic Dynamics and Ecosystem Processes of the Coastal Tundra Ecosystem, the Yukon-Kuskokwim Delta, Alaska

ABSTRACT OPP-9214970 SEDINGER This project seeks to develop a dynamic model to describe the potential impact of climate variation on the tropic structure of a coastal Alaskan ecosystem by assessing the degree to which climate change influences habitat structure and availability with the population dynamics of a colonially nesting bird, the Pacific brant. The area of study, the Yukon-Kuskokwim Delta, has been traditionally exploited by Yup'ik people and geese are a seasonally important resource. A parallel study of native oral history will be conducted in order to access traditional knowledge of the ecology of this region.